Travel Support for the 2012 IEEE International Symposium on Performance Analysis of Systems and Software

The International Symposium on Performance Analysis of Systems and Software (ISPASS) is a premier forum for sharing advanced academic and industrial research focused on performance analysis of computer systems and software, and brings together researchers from the computer architecture, systems and applications software, and performance analysis fields. ISPASS seeks to increase student participation in symposium and the field. The proposed funding supports the travel of eligible US students to the symposium. The education and training of students is an important broader impact of NSF funding.